Surface Mediated Organic Chemistry on Alumina and Modified Alumina

The "solvent like" characteristics of alumina under a variety of conditions will be determined. Diagnostic Diels-Alder reactions will be evaluated with emphasis on the stereochemical and rate consequences of carrying out reactions on activated alumina. In addition to the investigation of cycloaddition processes, the ability of alumina surfaces to enhance the acidity of hydrogen halides will be evaluated by the spectroscopic analysis of protonated polycyclic aromatics. By comparison of the behaviour of the cycloaddition and protonation reactions on alumina with similar reactions in solution, solvent parameters will be assigned to the surface of alumina as a function of the activation temperature. %%% This grant from the Organic Dynamics Program supports the work of Professors R. A. Pagni and G. W. Kabalka at the University of Tennessee. Alumina, a form of aluminum oxide, is a porous solid which is widely used in the chemical industry, both as a medium for chromatographic separations as well as a catalyst to accelerate chemical processes. The studies will be directed to providing a framework for defining the parameters which will enhance the utilization of alumina as an effective catalyst for organic reactions, many of which have important industrial applications. By determination of the solvent-like nature of alumina, it is possible to learn how the properties of the surface can be altered to maximize the yield of well defined chemical structures. This work will provide the understanding required to efficiently make chemical structures with specific architecture or "stereochemistry."